2025 ACS National Graduate Research Polymer Conference: Polymer Sustainability: Diverse Strategies for Addressing Global Challenges

TECHNICAL AND NON-TECHNICAL SUMMARY:

This award provides partial funding to the 2025 ACS Polymer Chemistry Division National Graduate Research Conference (NGRPC), which will be focused on "Polymer Sustainability: Diverse Strategies for Addressing Global Challenges".

The conference will include participants across the areas of polymer science and engineering with expertise including chemical synthesis, composites, rheology, 3D printing, and self-assembly. A broad selection of forward-looking topics will be discussed in focused sessions on circular plastic economy, quantitative sustainability, bioinspired macromolecular design, green-chemistry approaches to macromolecular synthesis, additive manufacturing and sustainability, stimuli-responsive polymers, and systems modeling.

The conference is poised to provide a multidisciplinary educational platform for students and expand the scope of their research, establish meaningful collaborations and mentorships, and offer an opportunity to highlight students' research especially as it interfaces with the broad and growing needs for sustainability.
.